Technology as a Context for Personal Growth of Teachers: A oach to the Appropriation of Science in  of Science in Elementary School Teachers

For the next three years, this group of scientists will work directly with 80 teachers to develop, test, and prepare for dissmination a teacher enhancement plan for inservice development to improve science education in the elementary school. They expect the ideas and materials produced to have an impact on the way science and technology are presented in college courses for future teachers as well as on in service staff development. The theoretical position and practical experience of the staff, under the direction of Dr. Seymour Papert indicates that the problem of preparing elementary teachers for science education cannot be reduced to training teachers in facts and skills, nor even to helping them to devlop the cognitive underpinnings of scientific knowledge. More subjective and experiential aspects of the learner's relationship to science requires much specific attention. The project has been attentive to affective and social issues as well as the cognitive aspects of learning science. The central objective is helping teachers appropriate science--which means making it one's own, in one's own way...integrating into one's own personal thinking. Most important, the success of the teachers in learning science will encourge a conviction that children can, and should, experience science in a similarly personal experiential way. In year one, teachers will attend a three-week, intensive, hands-on summer workshop using information technologies to enhance their understanding of science, to develope strategies for the integration of new science content and technology into their own teaching. This group of forty teachers will come from ten schools in the Boston area. Mentor teachers will work with these teachers during the school year, at the conclusion of which they will attend a one-week workshop-seminar to consolidate what they have learned. During year two, a similar experience will be available to teachers in the Hartford, CT area. Teachers will then be encouraged and supported to work with their peers in their own schools. This design is modeled after a successful experience in working with Costa Rican teachers who had virtually no experience with computers. An amount equivalent to 52% of the NSF request is being cost-shared by MIT and the participating schools.